Study of Random Motion in Random Environment, and Random Matrix Theory

This proposal deals with the long term behavior of RWRE (random walks in
random environments). More precisely, one looks at random walks on the
d-dimensional lattice, whose transition probabilities form a random field
indexed by the vertices of the lattice. Not only is the RWRE providing a
serious mathematical challenge, many of the results proved in this field,
especially in the one dimensional case, stand in sharp contrast with the
behavior of classical random walk. For example, in dimension 1,
subdiffusive behavior and aging phenomena are present, whereas in high
dimension one may construct RWRE's with nonzero (averaged) local drift
pointing in one direction while the walk drifts away (with positive speed)
in the opposite direction. Some of the mathematical challenge emanates
from the fact that in the multidimensional case, conditioned on the
transition probabilities random field, the RWRE is not reversible. This
precludes the use of much of the available theory of homogenization, and
requires the development of new techniques, most notably through the use
of regeneration times and of renormalization ideas. In spite of rapid
progress that was achieved in the last few years by several researchers
including Bolthausen, Sznitman, Varadhan, Zerner, and the PI, many
fundamental questions remain unanswered. Among these one notes the
existence of 0-1 laws, laws of large numbers in full generality,
transience and recurrence criteria, the relation between quenched and
annealed large deviations behavior, the existence (or non-existence) of
sub-diffusive behavior for high dimension, and the behavior of RWRE's in
mixing (as opposed to i.i.d.) environments.

Random walks are arguably the stochastic processes most studied by
mathematicians, having the widest range of applications in fields as
diverse as the physical sciences, engineering, and the social sciences.
Though the theory of random walks is by now well developed, this is not at
all the case when one changes the medium in which the walk evolves to a
random medium, thus obtaining a random walk in random environment (RWRE).
Such RWRE's can be used to model many problems of motion in random media
in the physical and engineering sciences, and are mathematically appealing
because on the one hand the model is very simply stated, while on the
other hand established tools for studying processes in random media are
not applicable in the study of RWRE. The goal of the current proposal is
to develop new basic probabilistic techniques that will allow to make
provable predictions concerning the behavior of RWRE. It is expected that
such techniques will be useful in the study of other processes, and link
naturally to the study of trapping models and reinforced random walks.
While not explicitly targeted in this proposal, trapping models have
recently been used to study the environmental impact of nuclear waste, and
RWRE's can naturally be used in this context to model the spread of
contamination in a real environment, once the required mathematical
background and tools are in place.